Social, Demographic and Health Consequences of Pastoral Sedentarization in Kenya

9400145 Fratkin This project is a multidisciplinary approach studying both the human causes and consequences of changing land use patterns and food production in arid northeastern Africa. Due to prolonged drought, population growth, and political insecurity, formerly nomadic populations are settling in or near growing towns, transforming traditional land use practices from low density nomadic pastoralism to high density dry land and irrigation agriculture, commercial ranching, or urban migration. It is not clear, however, what consequences this sedentarization process is having on human well-being and the ability of these marginal lands to sustain these populations. Land resources in these regions are marginal with low rainfall and patchy productivity, while human populations are rapidly expanding at rates of 3% annually. Similar situations to that of northern Kenya is found in the semi-arid lands of the Sahel, Mid East, and Central Asia. This study involves a cultural anthropologist, demographer, and medical doctor, each of whom has extensive experience in N. Kenya. They will compare six closely related but economically distinct Rendille communities (pastoral, agro-pastoral, and irrigation agricultural communities), to determine through empirical observation levels of "well-being", defined in terms of nutritional and health indices of women and children, demographic change (fertility, mortality, and morbidity), and socio-economic status (levels of market integration, employment, land tenure, and political security). The research is important because it is one of the few projects that attempts to measure social and health consequences of changing land use patterns in arid lands, and hopefully can act as a model for related studies in other regions of the world.